Oceanographic Instrumentation

The Scripps Institution of Oceanography of the University of California at San Diego will acquire several sea-going systems and items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the four research vessels operated by the institution. A substantial part of the ships' operating schedules during 1989 is in support of NSF-sponsored research projects. The instrumenta- tion will also increase the capabilities of the ships and of the institution to support research and engineering activities. The instrumentation includes: -Shipboard data management systems and components for real- time acquisition and display of large data sets, -Doppler Current Profiler spares for reliable collection and continuous measurements of subsurface circulation features, -Environmental sensors for multiple-opening and closing net system. -CTD enhancements for obtaining detailed profiles of seawater conductivity and temperature as a function of depth, -Salinity bottles for storing seawater samples, -Niskin bottles for collecting discrete seawater samples at various depths in the water column, -waterguns and depressors for an acoustic seismic profiling system upgrade, -High-speed streamer for single-channel acoustic profiling, -Precision acoustic pingers for determining position of an instrument package relative to the surface or seafloor, and -12-kHz echosounder system for collecting data on seafloor bathymetry and sedimentary profiles. The University of California is cost sharing in the acquisition of this equipment. The instrumentation described above will increase the capability of the organization to support NSF-sponsored research and engineering projects.